NYI: Advanced Oxidation Processes for Water and Wastewater Treatment

This is an award to provide support for research on oxidation processes for water and wastewater treatment. The investigator's plan emphasizes the application of advanced oxidation processes including those that generate ozone for the treatment of industrial wastes. He plans to collaborate in conduct of his research with appropriate industries that he expects will assist in defining research needs and implement the application of its results. This award is in accord with conditions contained in NSF 91-112, Young Investigator Awards FY 1992 Program Guidelines for Submission of Nominations. Results of this research may be applied to engineering design of processes as components of systems for treatment of wastes utilizing oxidation processes that involve reactions with ozone and the hydroxyl radical in aqueous-phase water and wastewater treatment processes.